Nonlinear PC-Windows Version of Program Combat

This project is to continue and to extend a successful research effort leading to the development of a PC version of the computer program COMBAT, a powerful FORTRAN program for seismic dynamic response analysis of buildings. The following additional capabilities will be introduced: (1) K-bracings and tilted columns and floor diagrams, (2) "tool-box of structural elements/components, (3) animation graphics capabilities, (4) accurate wall elements, (5) flat shell element to represent floor systems, (6) modification of the time-matching mechanism for handling nonlinearities, and (7) material and geometric nonlinearities. This project involves a collaboration with the Chinese Building Academy as part of the US-PRC protocol program. The study will transform the program COMBAT into a full- flegged computer aid design (CAD) environment on PC's.